Engineering Enhanced Anti-Apoptosis Activity for Mammalian Cell Culture

The objective of this project is to increase the lifetime of mammalian cells in culture by limiting apoptosis through genetic engineering. Specifically, anti-apoptosis genes will be modified to prevent their degradation in culture. The rationale is that much mammalian cell death in bioreactors is apoptotic and therefore represents a mechanism for increasing culture lifetimes. This would reduce productivity costs and make cell culture processes feasible for a larger number of products. This project will develop stable inhibitors for apoptosis for a wide range of mammalian hosts such as Chinese Hamster Ovary and Baby Hamster Kidney cell lines.